Multi-Scale Experimental Investigation of Sliding Friction

***
9908218
Glaser
Engineers have always relied on rate- and state-dependent constitutive models
(behavioral criteria). Recent advances by the condensed-matter physics
community have resulted in hypothetical theoretical mechanisms responsible for
frictional resistance to sliding. These models explain behaviors from angstrom
scale to kilometers-long earthquake dislocations, and provide a theoretical
framework for understanding material creep as well as self-healing slip on the
San Andreas fault. Since there has been little direct experimental proof that
the posited fundamental physical mechanisms indeed are at work, the PIs will
leverage their experimental and interpretive ability to image these
micro-mechanisms. Given that the fundamental kinematics of frictional junctions
results in production of phonons (vibrational, hence acoustic, energy), the
combination of quantitative acoustic emission and waveform inversion is
uniquely able to image these kinematics. Glaser has developed surface and
embeddable sensors proven capable by NIST of measuring picometer displacements
from 10 kHz to 1 MHz to within 3 dB. Studies show that the dynamic record
transduced by these sensors match the theoretical kinematic waveforms
remarkably well, allowing whole-waveform inversion for source kinematics rather
than single-point moment tensor inversion.

The results of this project will further science and engineering on several
levels. Fundamental understanding of the physical mechanisms behind sliding
friction, leading to improvement of basic understanding of the physical world.
This will help refine current empirical understanding of friction and allow
great improvement in mechanical design from nanomachines to sub-kilometer-scale
structures. In addition, fundamental questions about kilometer-scale
earthquake source mechanisms will be answered, in particular the issues
surrounding the notion of self-healing slip, thereby leading to an improved
understanding of the earthquake dislocation mechanism, and ultimately improved
seismic safety.
***